III: Small: BeliefDB - Adding Belief Annotations to Databases

In many scientific disciplines today, a community of users is working
together to assemble, revise, and curate a shared data repository. As
the community accumulates knowledge and the database content evolves
over time, it may contain conflicting information and members can
disagree on the information it should store. Relational database
management systems (RDBMS) today can help these communities manage
their shared data, but provide limited support for managing
conflicting facts and conflicting opinions about the correctness of
the stored data.

This project develops a Belief Database System (BeliefDB) that allows
users to express belief annotations. These annotations can be positive
(agreement) or negative (disagreement), and can be of higher order
(belief annotations about other belief annotations). The approach
allows users to have a structured discussion about the database
content and annotations. A BeliefDB gives annotations a clearly
defined semantics that lets a relational database understand and
manage them efficiently.

Intellectual merits: (i) Definition of a Belief Database Model: The
project develops a formalism that extends a relational database with
belief annotations on data and on previously inserted annotations.

(ii) Design of a Belief Query Language: The project complements the
data model with a new query language that extends SQL. (iii)
Development of a canonical Belief Database Representation: The
projects develops approaches to store and manipulate belief databases
on top of a conventional RDBMS.

Broader impact: Curated databases and shared data repositories are
becoming widespread in the scientific communities. A BeliefDB
provides a new data management system that addresses the need of these
communities to manage conflicting data. If successful, the project
will be one of the pieces that will help data management technology
undergo a new paradigm shift, from managing data as content, to
supporting a community of users in collaboratively creating partly
conflicting database contents.

For further information on the project see the project web page::
http://db.cs.washington.edu/beliefDB/